Spectral Describing Functions for Nonlinear Dynamic Systems

Many methods currently exist for determining the response of dynamic systems. However, most have shortcomings and cannot be used to understand systems with strong nonlinearities, high noise intensity, or non-gaussian inputs. Furthermore, time integration is time-consuming, provides no global information on response, and has other difficulties as well. This project proposes a new concept, Spectral Describing Functions, which may provide the solution to some of these difficulties.